CISE Instrumentation Grant: An Integrated Symbolic & SignalProcessing Workstation for Research in Signal Analysis, Machine Perception and Computer Architecture

A Lisp Workstation will be provided for researchers at Ohio State University for research in the Department of Electrical Engineering. This equipment is provided under the Instrumentation Grants for Research in Computer and Information Science and Engineering program. The research for which the equipment is to be used will be in the areas of Signal Analysis, Machine Perception and Computer Architecture